Reactive Collisions of State-Selected Molecular Ions with Surfaces

State to state dynamics of the interaction of small molecular ions with well characterized solid surfaces is the subject of this research project. Professor Jacobs' work at the University of Notre Dame, supported by the Analytical and Surface Chemistry Program, uses state specific methods to prepare a beam of ions in a particular quantum state. This ion is then scattered from a solid surface prepared and characterized in ultra high vacuum, and the scattered ion identity, velocity, and energetics are determined. The results of these detailed measurements are compared with wave packet calculations to enable the interpretation of the scattering process. The specific systems investigated include N2+ and CO+ scattering from Pt(111), HBr+ scattering from Si(100), and C2H2+ interacting with various metallic surfaces. The results of this work provide important basic information for the mechanisms of ion etching and surface induced dissociation of organic ions for mass spectrometric characterization. A detailed mechanistic understanding of ion surface interactions is vital to several technologically important fields, such as reactive ion etching of semiconductors, satellite dynamics in low earth orbit, and surface induced dissociation mass spectrometry. The work of this project is designed to provide this detailed mechanistic understanding, using the sophisticated methods of state preparation and surface scattering.